Computerized Image Analysis of Biological Data in Under- graduate Instruction

This department is committed to bringing quantitative depth and rigor to students' visual data by installing three complementary systems: (1) a computerized image analyzer; (2) a color video camera and recorder; and (3) Nomarski optics to upgrade an existing phase- contrast microscope. This equipment, along with a fluorescence photomicroscope obtained through a NSF grant in 1985, enables the immediate introduction of image analysis into these laboratory courses: Cell Biology, Immunology, Genetics, Plant Biology, Biological Systems, Contemporary Biology for non-majors, and Senior Research. Computerized image analysis enables students to accurately and rapidly measure the size, shape and density of microscopic and some macroscopic objects, to statistically analyze these data, and to incorporate images and statistics into a single computer-generated lab report. The project enables both upper- and lower-level biology students to transform initial qualitative perceptions of visual data into statistically-supported conclusions. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.